MSPA-MCS: 3D Fluid Surface Reconstruction Using A Multi-Camera System

Modeling and reconstructing time-varying 3D fluid surfaces is a
challenging problem. First, accurately measuring 3D fluid surfaces is
difficult because their features can be highly varying in space and time,
and the measuring device should not be intrusive to the fluid. Second, the
evolution of fluid surfaces is governed by complex physical mechanisms
that need to be incorporated into the reconstruction methods. In this
research, the PIs propose a novel approach for accurately reconstructing
3D fluid surfaces from sampled data. This project consists of two key
components: a fluid surface acquisition method and a fluid surface
reconstruction method. For data acquisition, the PIs propose to design a
novel experimental system using a light field camera array that can
simultaneously capture different views of a fluid surface. A known pattern
is placed beneath the surface and each camera observes a distinct
time-varying distortion pattern. A sampled fluid surface can then be
measured by analyzing these distortions. For surface reconstruction, the
PIs propose to develop an iterative optimization algorithm which minimizes
the error relative to the sampled data and finds the reconstructed surface
by solving the full Euler equations for 3D free-surface flows. Solutions
of these equations are computed by using an efficient numerical method.

The results of this research have many applications in Fluid Mechanics as
well as in Computer Graphics and Vision, such as the validation of
existing fluid models and the integration of reconstructed fluid surfaces
into animations and film footage to reproduce realistic phenomena. This
interdisciplinary project will promote the training of graduate students
on mathematical modeling, laboratory experiments, and computer
simulations. The PIs will also develop courses and seminars for both
undergraduate and graduate students interested in these topics.